Competitive Analysis of Online Algorithms for Computer Systems

Project Title: Competitive Analysis of Online Algorithms for Computer
Systems

This research focuses on algorithms that work
with limited information. Each topic is motivated by an application
in on-line resource allocation in computer systems and is studied
using theoretical analysis as well as empirical evaluation.
The first topic is focuses on
designing protocols for power management.
The second topic of this research addresses problems
that arise in scheduling and load balancing for multimedia servers.
The third topic focuses on the problem of balancing the use of
bandwidth and storage in caching continuous multi-media objects
for Web proxy servers.

For the power management topic, the question addressed is when to move
an idle device to a lower power consumption state so as to
conserve power usage while minimizing the latency experienced by the
user. The investigator expands upon previous work on power management by
introducing the notion of latency and by studying systems with multiple
levels of power usage. The work on multimedia scheduling and load
balancing focuses on two problems. The first is scheduling transmission
of data that must be viewed continuously when clients have large
buffers that can store data transmitted ahead of time.
The second problem is to perform load balancing in assigning
tasks to servers when there are multiple resource requirements
that need to be balanced. For the topic of caching continuous
multi-media objects for Web proxy servers, the challenge
is that continuous data must be transmitted to the client in a
continuous sequential stream. To support the real time requirements
of streaming, web caches need to reserve bandwidth as well as space
for each request for a continuous data object.
This research investigates algorithms for balancing these
two resources.